Mathematical Sciences: Numerical Linear Algebra - Accuracy and Parallelism

Mathias The investigator studies the accuracy of parallel algorithms for finding the eigenvalues and eigenvectors of linear systems and develops efficient parallel algorithms for eigenvalue problems, especially the nonsymmetric case. The first part of the project focuses on analysing the accuracy of parallel algorithms -- in particular 1. parallel prefix type algorithms 2. Jacobi algorithms for the (possibly generalized) symmetric eigenvalue and singular value problems 3. implementations of the Hessenberg QR algorithm. The question of accuracy is important, though little work has been done on it, because some parallel algorithms can be much less accurate than the corresponding serial algorithm -- so much so that the results that they produce are meaningless. The second part of the project seeks efficient parallel algorithms for the nonsymmetric eigenvalue problem and to improve the efficiency of the parallel algorithms for the symmetric eigenvalue problem. The nonsymmetric case is especially important as there is no algorithm for this problem that can properly exploit the capabilities of a parallel computer. Parallel algorithms are widely used and studied because they allow one to solve a computational problem in much less time than if one were to use a serial algorithm. As parallel computing becomes increasing common it is important to have parallel algorithms that are both accurate and efficient. The goal of this project is to provide such algorithms for problems in numerical linear algebra. Eigenproblems arise naturally in every area of science and technology, so effective algorithms to solve them have broad impact.